The typology of subordinate clauses: A case study

This project investigates inferences that can be drawn from sentences with subordinate clauses, such as 'I forgot to lock the door' or 'I forgot locking the door'. It has been observed that languages use specific verb forms to encode specific inferences. For instance, the form 'to lock' above implies that the door wasn’t locked, while using the form 'locking' implies the opposite. Such mappings between form and meaning/inference have been investigated in English as well as a small number of other closely related languages, and these investigations have led to interesting hypotheses about how human language connects form with meaning in general. The current picture is incomplete, however, since it is not clear whether these hypotheses cover languages outside the circumscribed collection on which they were developed. This project aims to address this gap by investigating the topic in an understudied and under-resourced language whose subordinate clauses differ in important ways from those found in well-documented languages.

The project has two main components: a large-scale data collection component and a computational modeling component. The data collection component uses a novel staged elicitation methodology that interleaves standard elicitation methodologies with both corpus-based methods and web-based experiments. The computational modeling component develops a computational model for finding underlying semantic classes of predicates across multiple unrelated languages. This research not only helps to reveal a fuller picture of how human language connects form with meaning in general; it also serves to develop resources crucial for developing applied technologies for natural language understanding.